Topical Conference on Opportunities in Biology for Physicists, September 27-29, 2002, Boston, MA

This award provides partial support for a topical conference entitled "Opportunities in Biology for Physicists", to be held in Boston on September 27-29, 2002. The conference will be aimed predominantly at graduate students and postdocs in physics who are considering applying the methods of physics to biological topics. Physicists and biologists who are leaders in their fields will be asked to give broad overviews of selected areas at the interface between physics and biology. In addition, there will be talks on the "how to" of moving into the interface between the disciplines. Support is provided jointly by the Physics Division and by the Office of Multidisciplinary Activities in the MPS Directorate.